Computer Equipment to Improve Data Acquisition and Analysis in Biology Labs

The institution provides a liberal arts freshman and sophomore curriculum. More than half of the students are older and returning to school or are rural, first-generation college students. This project, therefore, provides computers and associated physiological recording equipment and software that helps undergraduate instruction in biology. The software programs developed have also allowed faculty to prepare printed and Hypercard-based tutorial material custom-designed to the backgrounds of our students. It is expected that this project will enhance the laboratory experience of our traditional students and tap the currently underutilized capabilities of our large non-traditional population at the institution.